Solid Modeling and AI Reasoning for Process Planning

Hardware upgrades for LISP machines, and display equipment, will be provided for researchers at the University of Maryland for research in the Department of Computer Science. This equipment is provided under the Instrumentation Grants for Research in Computer and Information Science and Engineering program. The research for which the equipment is to be used will be in the areas of solid modeling, feature-based modeling, and artificial intelligence reasoning for process planning.